Various Topics in Theoretical Physics

We propose to continue our work on the theory of low energy nucleon-antinucleon annihilation. A theory of annihilation must begin with a theory of the nucleon with its conserved quantum number, lead through the annihilation process and end with an account of the many final states with the corresponding many channels of mesons. The theory must have its roots in the fundamental theory of the strong interactions, Quantum Chromodynamics (QCD). The low energy domain of annihilation is a particularly challenging one for QCD and before our work there was no scheme that could even begin to give a full account of annihilation. We have previously provided a remarkably good account of the final states of annihilation, including all the many channels, beginning with the classical (that is non-quantum) limit of QCD represented by the Skyrme model. More recently we have shown that the nucleon-antinucleon interaction can be described using that same Skyrme model. We now propose to put these initial state and final state pictures of annihilation together and create a theory of annihilation from start to finish. We propose a number of routes to this goal. Our success thus far suggest that these approaches will succeed, leading not just to a theory of annihilation based in QCD but also to new insight into this complex but fundamental process.